CAREER: Large Scale Geometry and Dynamics in Group Theory

DMS-0349290
Kevin M. Whyte

The program of studying discrete groups via the quasi-isometric geometry
of their Cayley graphs was suggested by Gromov in his address at the 1982
International Congress of Mathematicians. This program has two complementary
parts: finding invariants to show that different groups are not quasi-isometric,
and constructing quasi-isometries to show that similar groups are quasi-isometric.
The PI has made several contributions to this program in the past, including a
recent proof of quasi-isometric rigidity for the group of integral affine
transformations and the group of automorphisms of a surface group (the latter
in joint work with Lee Mosher). The PI proposes significant extensions
of these results in the context of the development of the subject of large
scale dynamics. In addition to rigidity phenomena, the proposed research
includes a detailed study of less rigid groups, which should help to clarify
questions about quasi-isometric invariance of many algebraic and combinatorial
properties of groups.

Roughly speaking, large scale (or coarse) geometry is the study of geometric
properties of objects "seen from far away". From this perspective, any bounded
object is indistinguishable from a point, and a line of dots is
indistinguishable from a solid line. This sort of geometry has been
influential recently in many areas of mathematics, notably group theory,
topology, and geometric analysis. This research will explore the large
scale geometry of several classes of mathematical objects, both classical
geometric spaces and objects only now being viewed in a geometric manner.
There has been a tremendous amount of interest in this area of study
recently, with many of the experts in the field located at one of the
universities in the Chicago area. The proposal includes a variety
of programs to develop interaction between mathematicians, and
especially their graduate students, within this community.